Applications of Pro-Homotopy Theory to Algebra

My main goal in this project is to use the homotopy theory of pro-spaces
to prove non-existence theorems for sums-of-squares formulas over
arbitrary fields. This is a question of primary interest in the study of
quadratic forms, but it is also closely linked to a variety of other
fields of mathematics, including the existence of finite-dimensional
division algebras, counting independent vector fields on spheres, and
immersions of projective spaces into euclidean spaces. There is a long
history of applying cohomological methods to sums-of-squares formulas over
the real numbers. My goal is to adapt these methods so that they work for
other fields. This involves the use of generalized etale cohomology
theories (such as but not limited to etale K-theory) of algebraic
varieties instead of generalized cohomology of topological spaces. The
correct definition of generalized etale cohomology involves some subtle
aspects of the homotopy theory of pro-spaces. Motivic homotopy theory is
another useful tool in studying sums-of-squares formulas and more
generally quadratic forms. I intend to work on specific problems that
further elucidate the relationship between motivic homotopy theory and the
theory of quadratic forms.

Cohomology was a key unifying concept in the study of topology throughout
the twentieth century. The basic principle of cohomology is to turn a
difficult problem in topology into a computable algebra problem. Many of
these cohomological methods work also in algebraic geometry (i.e., the
study of geometric objects that are defined by polynomial equations), but
the technical details tend to be much more complicated. Traditional
cohomology can be used to prove theorems about the real numbers because
the real numbers are a topological space. Cohomology in algebraic
geometry allows us to generalize these theorems to other number systems,
such as finite fields. The basic goal of my project is to establish some
of these generalizations. In short, the point is to use ideas from
algebraic topology to think about problems in algebra in new ways.